2012 Plasma Processing Science GRC & GRS, July 22-27, 2012, at Bryant University, Smithfield, RI

1202232
Chang
The world faces significant grand challenges in the areas of energy, human health, and environmental sustainability. Plasma science and technology, due to its intrinsic nonequilibrium nature, is expected to be at the heart of many key enabling technologies that are needed to provide breakthrough solutions for these grand challenges. The 2012 Gordon Research Conference on Plasma Processing Science will feature a comprehensive program that will highlight cutting edge scientific advances in plasma science and technology as well as explore the applications of this nonequilibrium medium in possible approaches relative to many grand societal challenges. Fundamental science sessions will focus on plasma kinetics and chemistry, plasma surface interactions, and recent trends in plasma generation and multi-phase plasmas. Application sessions will explore the impact of plasma technology in renewable energy, the production of fuels from renewable feedstocks and carbon neutral solar fuels, and plasma-enabled medicine and sterilization.

The intellectual merit is to advance the knowledge and understanding in basic plasma science by bringing together leaders in the field in an informal atmosphere with junior investigators and graduate students. The special format of the Gordon Conferences, with programmed discussion sessions and ample time for informal gatherings in the afternoons and evenings, will provide for a fertile atmosphere of brainstorming and creative thinking among the attendees. These planned activities focus on exploring creative original concepts as well as transformative concepts in plasma processing science.

The broader impact of the conference is best demonstrated by the planned weekend-long Gordon Kenan Research Seminar, which will take place associated with 2012 Gordon Research Conference on Plasma Processing Science (GRC-PPS). This seminar features attendance limited to graduate students and post-doctoral associates, allowing for scientific interaction in a non-threatening environment. It is designed to foster exchanges of advance discovery and understanding while promoting mentorship, peer review and learning amongst young researchers in this field. The seminar has been and will continue to help broaden the participation of underrepresented groups (e.g. gender, ethnicity, disability, geographic etc.). The benefits to the society includes the education of the future generation of the scientists in plasma processing science and the advancement in technologically important areas utilizing plasma processing science.